The Ecology and Behavior of Mantled Howling Monkeys

This research is the continuation of a long-term project, begun in 1972, to study the ecology, behavior, and demography of mantled howler monkeys. The objectives of the study are to examine what influences density, dispersion, reproductive success, and food selection of the monkeys. Ecological and behavioral data will be collected on individuals living (1) in different habitats; (2) at different population densities; and, (3) in different-sized social groups. A comparative analysis of the results will be done to test various hypotheses generated from sociobiological theory. One hypothesis, for example, is "Group members share resources with relatives" more than with non-relatives. The research is able to concentrate on individual strategies because most of the total population of 350 howlers are uniquely marked and identifiable. Long-term and multidisciplinary studies of marked animals can provide valuable information on life-history variables and kinship relationships, factors which can change over time. Many species of nonhuman primates are either threatened or highly endangered and attempts are being make to protect the most endangered. One powerful tool in this regard is mathematical modeling, and models must be tested with data from long-term demographic studies such as this one.